"Collaborative Research: RII FEC: Enhancing Indigenous Community Resilience to the Impacts of Extreme Weather"

Many rural communities in New Mexico (NM) and Oklahoma (OK) are at high risk for flood, drought, fires, dust, and their impacts. Scientific projections indicate that these states are expected to be hotter and drier, with more extreme events. These changes affect and will continue to impact how communities live and work. This project aims to establish respectful, reciprocal, and sustainable research and education partnerships to advance local communities' resilience to extreme events in NM and OK. In collaboration with regional and local organizations, local experts and educators, along with experts and educators from various institutions will combine their knowledge and scientific expertise through a community-led process to identify information needs, conduct research and understanding, prepare for adaptation planning and actions, and engage in education. The project will first work with communities to identify information needs. Capacity will be built through the installation of air quality monitoring systems. A summer internship program will foster meaningful associations among students’ lived experiences, new knowledge, and resilience against extreme weather events, and empower them to pursue careers to benefit their communities. The project will further develop a land-based curriculum for formal and informal science educators.

This project is focused on advancing local communities' resilience to extreme events with a specific emphasis on improving the air quality and water quality in NM and OK with installation of air quality monitoring systems and interpretation of in-situ and satellite air quality data. The project will utilize best practices in co-production to advance communities' knowledge by first working with communities to identify information needs in the land-water-air system. Research in water quantity will enable participants to evaluate how water quantity change will affect their plans for food resilience or other community goals. Participating communities will learn about the range of environmental information and infrastructure available to support their planning processes for enhanced resilience and adaptation.